Research in Elementary Particle Theory

Research in theoretical elementary particle physics will include a study of an incomplete phase transition in a hidden sector of space-time as the cause of the apparent accelerated expansion of the universe; work on the relation between recently observed neutrino masses and the dominance of matter over antimatter; and an investigation of the significance of clustering of high energy cosmic rays as a clue to their elementary particle content. Increasingly, research at the intersection of elementary particle physics and cosmology has provided important clues to the structure of the universe and the laws of physics which govern it.